Interactions between Harmonic Analysis, Statistical Estimation and Data Compression

Wavelets are useful in selected applications, for example in data compression, but not for others. This lectures series deals with alternative methods when classical methods fail to meet expectations. Alternatives use transform methods with adaptive time-frequency bases, edgelets, ridgelets, and orthogonal curvelet bases to create statistical feature extractors, estimators, and denoisers. Problems characteristically suffering from the curse of dimensionality in statistics, image analysis, and neuro-computing are treated from a unified approach. In addition problems in harmonic analysis are covered including oscillatory integrals, Bochner-Riesz summability, propagation of singularities, tomography with Radon-transform tools, and nonlinear Littlewood-Paley analysis. The analysis of all problems supports fast transforms and algorithms. Finally, a concluding lecture will be devoted to open problems and directions for future research.